Fundamental Study of Brittle-to-Ductile Transition

9522661 Hsia This combined theoretical/experimental study involves the modelling of brittle-to-ductile transition (BDT) in cleavage fracture. The intrinsic mechanisms controlling the BDT will be studied by examining two competing processes that occur at crack tips: cleavage crack propagation which results in brittle fracture and dislocation generation which occurs during the inherent plastic deformation that develops during ductile fracture. A novel experimental technique will be employed which involved growing a cleavage crack in a temperature gradient field and measuring the crack arrest due to dislocation generation. Three pieces of information essential to the fundamental understanding of this phenomena will be sought: the transition temperature, the crack velocity when the transition occurs, and the dislocation structure at the crack tip which accompanies the transition. ***